CAREER: Combating Worm Propagation in Emergent Networks

Sencun Zhu
Pennsylvania State University
0643906
CAREER: Combating Worm Propagation in Emergent Networks
Panel ID: 070111

Abstract

Worms have emerged as one of the leading threats to our
information systems and critical infrastructures. Despite the
tremendous research effort in combating worms, new computer and
system vulnerabilities are continuously reported and new worm
attacks keep succeeding. Another significant trend in worm attacks
is that the number of worm attacks against emergent networks, such
as P2P networks, cellphone networks, and sensor networks, is
rapidly growing. Because of the unique communication models and/or
resource constraints of the emergent networks, most of the
existing solutions for Internet worm defenses are not directly
applicable.

The objective of this project is to combat worm propagation in
these emergent networks. Specifically, various approaches are
designed for rapidly distributing security patches to P2P nodes
infected by worms propagating via file sharing applications and
topological scanning. Also, both device and network sides defenses
are used to contain cellphone worms that propagate through either
multimedia messaging services or Bluetooth interfaces. Finally, it
includes mechanisms to confine worms that propagate by exploiting
the monoculture of sensor programs in sensor networks. The
proposed research will provide fundamental services and tools to
combat worms in emergent networks. It draws upon a variety of
topics including cryptography, graph theory (graph coloring,
percolation theory, partition, dominating set), system (mobile
systems), networking (P2P, cellular network, sensor network) and
statistics. The results of the project will be disseminated widely
through publications and talks, and the proposed research will
also be integrated with the education curricula.